Active Control of Structures Using Neural Networks and Fuzzy Logic

9503209 Ghaboussi This project continues and extends the development of an active structural control method using neural networks by the investigators at the University of Illinois in 1992 under the NSF's structural control program. The main controller in the new method of structural control is a trained neural network, referred to as the neuro-controller. The training of the neuro-controller is accomplished with the aid of an emulator neural network, which is first trained to learn the structural behavior. Results from the numerical simulations showed that the new structural control method performs well compared to other control methods and is far more robust as well as being an inherently adaptive controller. In this project research on neural network based methods of structural control will be continued to consist of (1) experimental verification of the new structural control method; and (2) the extension into nonlinear control problems. The experimental work will be done in two stages. In the initial stage, extensive trial and error, adjustment and the online training of the emulator neural network and the neuro-controller will be done. Verification tests will be conducted on the shaking table at the University of Illinois Structural Engineering Laboratory, using a three story, one bay structural model, similar to those used in numerical simulations. The next stage of experimental work will be conducted at the NCEER facilities, on a larger structural model. Finally, the new method of structural control must be extended to address the problem of nonlinear control of structures sustaining unpredictable damage and develop a feasible and practical method of nonlinear structural control. ***